Modelling and Design Optimization for Helical Rotor Expanders (RUI)

This is a proposal that is concerned with the efficiency of power producing systems. Conventional turbines operate at high rotational speeds which impose high stresses on the blades, so that the use of exotic blading materials for high-temperature, heightened-efficiency operation is not yet a reality. Another approach is to use positive displacement expanders which operate at much lower speeds and have smaller diameters, with much lower resulting stresses. In the proposal, helical rotor expanders will be studied as candidates for power cycles. Geometric and thermodynamic modeling will be performed. Application will be made to several power systems of practical importance.